Collaborative Research: An Artificial Intelligence-based Interactive Learning Support System for Improving Plan Interpretation Skills of Construction and Engineering Students

This project aims to serve the national interest by advancing artificial intelligence (AI)-supported learning methods that help construction and engineering students develop plan interpretation and spatial reasoning skills. Plan interpretation is fundamental to design, engineering, and construction (AEC) disciplines, yet students often face serious learning difficulties. This Level 2 Engaged Student Learning project plans to create a Data-drive AI-based Interactive learning Support sYstem (DAISY), which is designed to provide step-by-step guidance, timely feedback, visual learning support, and personalized study aids while reinforcing responsible use of AI. By extending learning support beyond regular class time and helping students connect information across drawings with two- and three-dimensional representations, the project is expected to enhance student engagement and learning experience while providing more effective support for developing plan interpretation and spatial reasoning skills. The significance of the project lies in its potential to improve preparation of construction and engineering students for an AI-augmented workforce, while generating publicly available instructional resources and responsible AI guidance, and evidence-based knowledge about how emerging AI tools can support complex visual-spatial learning in undergraduate STEM education.

This project intends to: 1) design, develop and evaluate DAISY, a novel AI-powered learning system to support undergraduate students in learning essential skills in construction plan interpretation and estimation that are traditionally challenging; 2) build an open-access knowledge base that contains comprehensive domain-specific materials, responsible AI use guidance, and a replicable AI-powered teaching framework for construction plan interpretation; 3) create and validate a suite of assessment tools for measuring both cognitive and affective outcomes of AI-assisted learning; and 4) investigate how personalized AI interventions affect student learning in AEC education and generate transferable knowledge for related disciplines. The project plans to integrate DAISY into undergraduate courses and evaluate its effects through performance-based assessments, user interaction data, surveys, and interviews. Research findings, instructional materials, assessment resources, and implementation guidance will be disseminated through open-source repositories, publications, and workshops. The project is expected to advance understanding of how personalized, AI-supported learning can improve visual-spatial reasoning and discipline-specific problem solving in undergraduate STEM education. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.